Using NAEP Mathematics Items to Understand State Education Policies: A Multilevel Analysis

This project seeks to investigate State-to-State differences in National Assessment of Education Progress (NAEP) test items to determine how state policies have affected changes in NAEP scores. The study addresses the problem of assessing the contributions of State policies on student achievement. The purpose of the project is to develop empirical measures for the effects on student achievement of reform practices. It would analyze the content of individual items to better measure specific aspects of student learning that might have been affected by the policies of that State. Also, they would build a mathematical model of the value-added of state policies.